Efficient Sources of Soft X-Ray Radiation Based on Fast Capillary Discharges

9401952 Rocca There is significant interest in the development of compact and efficient sources of coherent and incoherent x-ray radiation for existing and emerging applications. Our previous research has studied the generation of highly ionized plasma columns of =200um diameter with electron temperatures of a few hundred eV and good stability utilizing currents that are 1 to 2 order of magnitude lower than those commonly used to create hot plasmas in large pulsed power generators. Building on these recent results, which include the observation of emission from the 3p-3s laser candidate transitions in neon-like Ca in a 40kA discharge, we propose to advance on the search for soft x-ray amplification in the plasma of fast capillary discharges. The proposed research also includes the study of the conversion efficiency of the electrical stored energy into incoherent x-rays to explore the feasibility of developing an efficient incoherent x-ray source. ***